Acquisition of a 250 MHz FT NMR Spectrometer

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solutions. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The Department of Chemistry of Oregon State University will use an award from the Chemistry Shared Instrumentation Program and the Biological Instrumentation Program to help purchase 250 MHz Fourier Transform NMR spectrometer. The areas of chemistry and biology that will be enhanced by the acquisition of the instrument include: 1) Bioorganic Studies of Antibiotics 2) Structural Analysis of Natural Products and Synthetic Intermediates by NMR 3) The use of NMR in the Synthesis of Oligonucleotide Analogs and the Morphine Alkaloids 4) Structure Elucidation of Biomedically Relevant Natural Products from Marine Plants 5) Alkylation of DNA by Pyrrolizidine Alkaloid Metabolites 6) Biophysical Studies on DNA Structures and Interactions: Application of NMR Techniques